MATHEMATICAL MODELS FOR COMMUNICATIONS SATELLITE PLANNING

This research is concerned with developing models to aid decisions about the trade-offs between competing telecommunications technologies and the services offered through them. The work is particularly concerned with planning models for communications satellites. This work is part of a larger study of technological and market factors on the cost effectiveness of terrestrial and satellite communications systems in competitive environments. It aims to develop quantitative tools to manage the development and operation of such systems. The models under study in this research relate to decision on key technical parameters, performance requirements, types of communications service is to be offered, the volume of each type of service to be carried on the system and the price to be charged. The work will develop the mathematical models, develop efficient solution methods for them, test and validate them with available data, and design a user interface with access to a database of economic and technical information. The work is significant for increasing our understanding of the interplay between a variety of technical and economic factors in making choices about expensive, long lived telecommunications assets and the services they will be capable of providing.